Attitudes and Attributes of Influentials in Earthquakes and Other Natural Hazard Policy Processes

A study conducted by Peter Rossi and his associates at the University of Massachusetts has resulted in a rich data base on the attitudes and actions of a sample of key local and state officials with regards to hazard mitigation and preparedness policies. This study will subject that data base to additional analysis. A technique known as block clustering analysis will be used to better understand those who champion natural hazard mitigation and preparedness policies, those who are indifferent or neutral, and those who oppose them. The original data will be coded to meet the requirements of the block clustering program; the data will be clustered using the program; the results of the clustering will be analyzed to yield profiles of the various types of decision makers; and the results will be presented in a research report.